Harmonic Analysis and PDE

The proposal addresses several questions that arise in problems
in Physics and Engineering. We describe one of the problems that
we have proposed. A basic situation that arises in Engineering problems
is to construct membranes composed out of two materials with different
densities. We impose additional requirements on the membranes
constructed, that is they also have the additional property that the first
eigenvalue be lowest possible. This is the requirement that the membrane
have the lowest tone. Natural questions that now arise are (1) Does such an
optimal configuration exist?(2) Is the junction region between the
membranes, the so-called free boundary smooth? If not smooth what
is the nature of the singularities, i.e. what is the Hausdorff dimension
of the singular set. (3) If there is symmetry in the problem does it reflect
and impose conditions that the materials have to be so glued as to respect
this symmetry. This problem is also amenable to numerical simulation
which we have also carried out, and in part the numerics have provided us
with insight into what sort of rigorous theorems can be proved.

The project really stems from questions proposed to the PI by
M. Imai and I. Ohnishi of the Institute of Electro-Communications
in Tokyo and K. Kurata of the Tokyo Metropolitan University. The
object is to design composites of materials with two different densities
such that the resulting composite has the lowest tone. For example one way
to naively view this problem is to patch together two materials in
such a way that the resulting composite membrane vibrates in the
slowest possible way out of all possible configurations that
can be formed by gluing together the two given materials. The first
question is (1) Is there always an optimal configuration possible?
(2) Is the interface between the two materials making up the
membrane smooth or necessarily are there sharp spikes? (3) If
there is some additional symmetry in the shape of the membrane
does it force that the materials be glued together in a way
such that this symmetry is to be respected? These are basic
Engineering questions that arise in many situations where say vibrations
are to be kept to a minimum. Computer studies help, but what nails
down with certainty, the description of the optimal configuration,
are rigorous theorems about the arrangement of the materials. This is
one of many problems in our project which can be summarized by saying
that it is the determination of optimal shapes in the design
of composite membranes so as to minimize vibrations and if possible
determine a explicit recipe(algorithm) that will tell us how
to achieve this optimal configuration.